Presidential Young Investigator Award

Professor Alfred Stone has been given a Presidential Young Investigator award to study transport phenomena at low temperatures. Such studies in addition to being of fundamental interest in condensed matter physics, may have important ramifications for the semiconductor device industry.